Efficient Solution of Dynamic Programming Models of Multi-Echelon Production Systems Using Spline Approximation

Research involves the exploration of the use of multi- dimensional cubic spline approximations in the context of continuous-state dynamic programming emanating from multi-echelon inventory/distribution problems. New theoretical and computational results should result, as well as a better understanding of when spline approximations are appropriate.